Lax Pairs and the Riemann-Hilbert Method for Solving Diffraction and Scattering Problems in Geophysics

The research project is focused on application of the Lax Pair
and the Riemann-Hilbert Method to the solution of scattering
problems in inhomogeneous geomaterials. This approach is based on
a new version of the Inverse Scattering Transform suggested recently by
A. Fokas for studying boundary problems for linear and integrable
nonlinear PDEs. Topics of investigation include: (i) analysis of
the Riemann-Hilbert problem on the elliptic curve related to the
vector Lax pair of the elastodynamic equation; (ii) explicit evaluation
of scattering coefficients of Raylegh wave in a quarter-space and
a corner; (iii) the Riemann-Hilbert approach to scattering of elastic
surface wave at a vertical interface of two homogeneous quarter-spaces.

The analysis of seismic waves is the major source of information
about the Earth internal structure and its sesmicity. The elastodynamic
equation serves as a basic mathematical model for studing diffraction and
scattering of seismic waves on deep fault zone areas and other inhomogeneities
in the Earth Crust and Upper Mantle. The research program indicated above
would allow to make a considerable progress in solving some of the longstanding
problems related to realistic geometry of seismic zones. Moreover, the
important nature of the method developed in the project is that it can be also applied
to various nonlinear versions of the elastodynamic equation. During the
last decades it has been discovered that nonlinearity of the Earth materials
may be responsible for some peculiar characteristics of the wavefield, hence
the research project would provide an analytic tool for studing
these completely new kind of seismic phenemena as well.